I-Corps: SOLUTION MICROARRAY MULTIPLEXED BIOMARKER IMMUNOASSAYS

No one biomarker gives all the information needed to diagnose or treat a patient reliably. Thus a major goal of clinical diagnostics is to efficiently analyze a panel of diagnostic biomarkers. Despite this well-known need, cost-effective, sensitive, and quantitative multi-protein (multiplexed) diagnostic immunoassays hardly exist. While hundreds of research articles have described multiplexed immunoassays, they cannot be validated for clinical applications due to increased background and or cross-talk that occur when multiple detection antibodies are mixed together into one solution. The team utilizes a proprietary microfluidic technology to provide an innovative solution to this problem by creating multiplexed immunoassay microarrays where no mixing of detection antibodies occurs. The project will advance microfluidic science and technology as well as provide new tools for use in basic science studies that utilize proteomics. In addition to science and technology advancement, this project will advance concepts and methods in translating laboratory research results into commercial products and services. The project will increase understanding of customer needs in the area of multiplexed biomarker assays and proteomics. The project will also propose the most efficient and commercially-viable methods to bring the technology to users.

The team envisions the project to benefit society through development of robust, user-friendly, multiplexed immunoassays that will enhance clinical diagnostics as well as basic biology studies through providing robust and user-friendly protein assays. As the project goal is technology commercialization, success of this project will directly provide a large benefit to society through economic as well as technological means. All three personnel involved (entrepreneurial lead, PI, and mentor) will also learn new ideas and methodology as well as actual hands on experience that is part of this project. These experiences will surely impact not only this particular technology commercialization effort but other commercialization projects in the future. Additionally, the technology transfer lessons learned will also be incorporated into the classroom through courses taught by the PI as well as through one-time lectures.